Experimental Investigation of the Solid/Liquid Interface of Thin Films During Thermal Processing - Creativity Award

One of the most challenging problems in electronic materials processing is the creation of a thin (1um) single crystal silicon film on an insulating film (SiO2). The resulting product is a silicon-on-insulator system (SOI) and can be used as the building block for many advanced applications. Through well established techniques such as chemical vapor deposition, a polycrystalline silicon film can be easily created. The challenge is to recrystallize it in the form of a single crystal. %%% The proposed research plans to: (1) verify if the difficulties of creating a single crystal are primarily driven by heat transfer; and (2) try to establish heat transfer techniques to successfully recrystallize thin silicon films in the form of single crystals. If successful, these techniques will improve the quality of SOI films used in the microelectronic industry.